ROLE: Learning and Knowledge Acquisition through Representation, Observation and Imitation in Neural and Cognitive Terms

This research will describe the neural and cognitive components of learning by observing, producing, and by imitating physical representations in the human brain. This will allow developing new learning tools and pedagogical approaches that may enhance education at all levels. It will use functional magnetic resonance imaging of the brain to define the involvement of the observation/execution matching system in different aspects of learning by observation, production, and imitation. Specifically, the research will:

- Describe mental representations underlying knowledge acquisition through representation, observation and imitation in neural and cognitive terms

- Investigate the mechanisms of individual learning in relation to social and societal influences

- The definition of psychological and physiological mechanisms of speech perception

The findings of this research are also relevant to brain development and the relation between cognitive skill and developmental strategies.